Improving Flow Distribution in Chromatographic and Related Adsorptive Processes

The proposed research concerns the development of molecular imprinting techniques to create binding and cataylic sites for organic molecues in crosslinked polymer networks. The term molecular imprinting refers to chemical techniques being devevloped that enable the synthesis of highly structured membranes and thin films. These materials can subsequently be used to selectively transport organic molecules and other substrates through them. Molecular imprinting is a rapidly expanding field that holds significant potential for providing novel materials with applications in chemical separations(like chromatography) catalysis and chemical sensing.